Oceanographic Instrumentation

9531143 Rabalais The PI requests funding to purchase shipboard instrumentation in support of NSF-funded research. The instruments will be used aboard the R/V PELICAN, a 105 foot vessel, which is owned and operated by the University. Instrumentation requested includes upgrades to a CTD system. The instrumentation is requested for support of NSF-funded cruises aboard the PELICAN. ***